Northern Archaeological Research Training

This REU SITE proposal requests support for eight undergraduates to participate in archaeological analysis of animal bone remains, stone artifacts, and medieval Norse artifacts at the Hunter College Bioarchaeology Laboratory. The focus of the program will be on the northern circumpolar zone, including collections from Iceland and Kodiak Island, Alaska. Students will develop skills in observation, quantification and scientific reasoning through contact with real archaeological collections and problems. The Hunter Bioarchaeology Facility has a 10-year record of attracting women and minority students to the social sciences.